Research Experiences for Undergraduates in Bioanalytical and Environmental Analytical Chemistry at the University of California, Riverside

9321459 Wilkins UC-Riverside Dr. Charles L. Wilkins and other members of the Chemistry Department of the University of California at Riverside are being funded for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6 , ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. A unique feature of this program will be the focus on bioanalytical an environmental analytical chemistry.